Effects of Applied Electric Fields on Abnormal Electric Neuronal Activity

Electrical stimulation has been used effectively to excite nerves, muscles and brain nerve cells. A more difficult problem is to inhibit the firing of neurons using electrical stimulation. A method for blocking neuronal firing would be extremely important any time abnormal neuronal firing interferes with the normal physiological functions such as in spasticity and in epilepsy. Electrical fields have been used to block neuronal firing in axons. Moreover, electrical fields applied in several parts of the brain have been shown to modify the excitability of neurons. This research project proposes that these electrical field techniques be studied for the purpose of controlling abnormal neuronal firing in neural tissue. Preliminary experiments have shown that neuronal firing can be blocked when low-intensity, long current pulses are applied with electrodes. Neural recording techniques as well as computer modeling methods will be used to understand the mechanisms. The in vitro brain slice preparation will be used for this project, since it is possible to directly position the electrodes in the tissue to ensure a proper orientation of the electrical field. The short-term impact of this project is to provide an understanding of the role of electrical fields in controlling abnormal neuronal activity. The long-term impact of this project is to generate the background knowledge for the design of the method for controlling and blocking abnormal epileptic activity.***//